A Study of the Regulation of Pollen Specific Genes

The primary objective of the project is to develop a competitive research proposal on "The Regulation of Pollen Specific Genes". The planning activities will include completion of preliminary studies and collaboration with an established researcher. Support of the project will assist a well trained black biologist to improve her research capability and to complete the planning and development of a regular MRI proposal. The planning activities, if successful, will significantly enhance the potential of the investigator to compete for MRI and other research support.